Alpine Summer School: Climate, aerosols, and the cryosphere

This award is support travel to the Alpine Summer School, which brings together leading experts working in the areas related to climate, aerosols, and the cryosphere to give both fundamental and advanced lectures to graduate students and researchers at the beginning of their careers as a means of educating the next generation of researchers. In addition, round table discussions and brainstorming sessions will be conducted between all participants to develop a vision of future research as well as cross-cutting collaborations.